Copper Mountain Conference on Multigrid Methods, Copper Mountain, Colorado, March 29-April 4, 1998

Manteuffel 9727525 The researcher and his colleagues organize a conference devoted to iterative methods for the solution of linear and nonlinear systems of equations. Particular themes are nonsymmetric linear systems, globally convergent algorithms for nonlinear systems, algorithms of optimal order of work, saddle point problems, and applications on multiprocessor computer architectures. The mathematical description of real-world problems leads inevitably to equations to solve. Many times the equations are nonlinear ones, arising because the underlying problem is nonlinear. Often, however, the original problem is linear and the mathematical equations are too. Such problems arise in all areas of science and technology, and are of special interest in biology, materials, environmental studies, and manufacturing. Progress in these areas requires solution of more comprehensive modeling equations --- such models are usually more nonlinear than simpler models ---, or more accurate solution of existing models --- increasing the size of the numerical problem to be solved. In certain problems, notably in fluid flow and in elasticity, computational methods for the equations describing the phenomena yield numerical systems having a saddle point; the solution is on a surface that looks locally like a saddle. Computational methods for such problems offer special difficulties. The conference addresses advances in algorithms to deal with larger numerical systems, nonlinearities, the amount of time and work needed to get a solution, saddle points, and the use of multiprocessor computers.